CSR-VCM: Dynamic Reconfiguration in Virtualized Data Centers

Modern data centers employ a virtualized architecture where application components run inside virtual machines and one or more virtual machines are mapped onto each physical server. This project focuses on the design of a virtualized data center that can dynamically remap physical to virtual resources and employ such dynamic reconfiguration capabilities to automate management tasks such as server consolidation, dynamic capacity provisioning, and system evolution. There are three areas of focus: low-overhead non-intrusive monitoring in a virtualized data center, agile reconfiguration for consolidation and provisioning, and the use of virtualized replicas for managed evolution. Non-intrusive monitoring involves a novel black-box approach that infers resource usage solely from external observations. Agile system reconfiguration utilizes these black-box measurements to automate reconfiguration tasks such as capacity provisioning and server consolidation using a combination of virtual machine migration and agile replication. The final technique exploits the ability to run concurrent application replicas inside virtual machine to ease hurdles faced in the evolution of the system from one version to another. A combination of system prototyping and experimental evaluation on a Linux/Xen cluster testbed running real-world data center applications will be employed to demonstrate the effectiveness of these methods.
Broader impacts include source code release of the prototype to enable further experimentation by other researchers and participation of undergraduate students in this research via summer REU projects.